Elementary Coordination Dynamics of Learning

9511360 KELSO The ability of animals to learn from experience reaches its highest form in human beings. Yet, despite extensive work in various fields of scientific inquiry, fundamental questions still remain to be answered: What is learning? What processes underlie the ability of humans to learn new skills? What is the nature of change? What factors determine generalization of one skill to another? What makes one task easy to learn and others difficult? This research is part of a broad program addressing these questions through studies of perceptual-motor coordination in tasks not unlike learning to play a musical instrument, but simple enough to be measured. The approach employs novel methods that allow a quantitative evaluation of the learner's existing capabilities before the introduction of a novel task. Nobody is a blank slate. The individual learner possesses his/her own "signature" (dependent on previous experiences, inherited traits, etc.) that influences the learning process. This research is based on the hypothesis that the rate of the learning process and the form that it takes is depend on the interplay between preexisting capabilities and the task to be learned. Since both can be expressed in terms of the same variables and the rates of change of these variables, dynamical laws of learning become accessible. This research will investigate how learning causes changes, not just in the representation of what has been learned, but in the entire layout of the learner's dynamics. Preliminary studies have shown that what is learned (relevant information) is quite independent of the particular system that practices the task. Thus, the ability to transfer knowledge from one domain to another appears to rest heavily on finding out what the relevant information is. A further direction of the research stems from a conceptualization of memory which assumes that its strength depends on the stability of the learned state and can be precisely quant ified using dynamical measures (e.g., fluctuations, time to relax from perturbations). Moreover, future plans include an evaluation of human brain activity patterns corresponding to behaviorally observed changes in learning and memory. Although the research is basic, aimed at understanding the psychological and neuronal mechanisms of human learning, it has the potential to spawn both implications and applications. In particular, the focus on individual constraints on learning and the need to structure the learning situation in the context of such constraints have significant implications for education. Avenues for applications exist in human-machine interface design, prosthetics, and rehabilitation following strokes, as well as in recovery from the numerous brain diseases that afflict human beings. ***